Support for Young US Scientists Attending the 2010 International Accelerator School for Linear Colliders, October 18-29, 2010 in Europe

The International Linear Collider (ILC) is a high priority project in the world high-energy physics program. As part of an ongoing effort to educate and train young scientists for this project, the ILC Global Design Effort (GDE), the ILC Steering Committee (ILCSC) and the International Committee for Future Accelerators (ICFA) Beam Dynamics Panel will jointly organize the Fifth International Accelerator School for Linear Colliders in 2010 in Europe. This award provides funds for partial support to U.S. students to attend the school.